Biology as Inquiry and Biochemical Investigations: Revitalizing and Modernizing a Freshman Biology Majors Course Sequence

The college is modernizing, upgrading, and revitalizing biological instruction directed primarily toward freshman biology courses. Instrument purchases provide opportunities for students to develop skills and knowledge about computer interfaced spectrophotometers, pH meters, and physiological recording apparati. While the previous course was largely descriptive, the new courses use an inquiry/problem solving approach to biological study, thereby enhancing the development of critical thinking, data analysis, application of technology, and scientific reporting. Students initially use the instrumentation in pre-designed experiments and then use them to answer experimental questions that they have initiated. In addition, the instrumentation is shared with upper division courses in physiology, cell biology, and biochemistry to enhance their laboratory experience. The college will contribute an amount equal to the award.